RUI: Developmental and Biochemical Genetic Studies of a Marsupial

The major objective of this project is to study certain aspects of the development and biochemical genetics of a small marsupial (the gray short-tailed opossum) which has recently been adapted as a laboratory animal. The only fully pedigreed colony of marsupials in the United States has been established, and this provides the resource for genetic studies not otherwise possible. Because the newborn marsupial is still in a fetal stage, it is an excellent animal model for developmental studies. This research program will study the development of the immune system and the genetic control of various enzyme systems. Since marsupial and placental mammals had a common ancestor more than a million years ago, these studies should shed light on the origin and specialization of these biological systems. This research at an undergraduate institution will also involve bright undergraduate students in basic research with a view toward interesting them in careers in science.